Designing Embedded Materials and Structural Discontinuities That Minimize Sound Radiation While Maintaining the Structural Integrity of Composite Materials

9625926 Mann This project deals with passively minimizing sound radiation from composite structures via the use of embedded material variations and integrated stiffners. An innovative methodology is developed to investigate the sensitivity of the radiated sound power to material and spatial variations so that designs may be optimized to possess minimal sensitivity to fabrication variability. The spatial variations are envisioned as thickness build-ups, which may additionally serve as structural stiffners. For these build- ups, analytical capabilities are developed to determine the effective stiffness and damping properties for input into a numerical model. The numerical model allows for variations in material properties over individual elements, thus reducing computational mesh size. Structural beams, designed to reduce sound radiation, are fabricated and tested to verify modeling methodology. The research effort provides a foundation for designing composite structures which exhibit high stiffness-to-weight and strength-to-weight ratios as well as low sound radiation.***